STTR Phase II: Surface Contamination Analyzer for Light Elements (SCALE)

This Small Business Technology Transfer Phase II project will support the development of a prototype Total Reflection X-Ray Fluorescence (TRXRF) spectrometer for measuring light element contamination on silicon wafers. The Phase II approach is to increase the source brightness and detector efficiency of the Phase I breadboard, while continuing to identify and reduce sources of interfering background. Phase II will be targeted at demonstrating detection limits of <4x1013 atoms/cm2 for carbon and < 1x1012 atoms/cm2 for sodium, while providing a feasibility estimate for achieving the industry's desired goal of 1010 atoms/cm2 for sodium. Stanford Synchrotron Radiation Laboratory (SSRL) will compare solid-state and proportional-counter detectors for this application, while using the lower detection limits possible with the synchrotron source to probe the fundamental limits of TRXRF. The technique of X-ray Photoelectron Spectroscopy (XPS) will be used to cross-check the TRXRF measurements and monitor uncontrolled surface contamination of samples during handling. The main commercial applications are to measure light element (boron through aluminum) contamination of silicon wafers to support the needs of the semiconductor industry, and for trace analysis of elements in ultra-pure solutions.